Optimal Design Processor for Structural Systems: Indo-US Cooperative Research, Award in US and Indian Currencies

9421297 Goldberg Description: This project supports a cooperative research project by Dr. David Goldberg, Professor of Engineering at the University of Illinois and Dr. C.S. Krishnamoorthy, Professor of Civil Engineering at the Indian Institute of Technology (IIT), Madras, India. The project aims to merge US research results in genetic algorithms (GAs)- search procedures based on the mechanics of natural selection and natural genetics- and Indian research on structural optimization and the application of knowledge-based systems, thereby producing a set of computer tools that can substantially improve the breadth and efficacy of structural design in both countries. The computer work is viewed as the development of a prototype GA shell tailored to structural optimization. When possible, public domain codes such as Genesis and Splicer will be used to save effort. Scope: This research project is suitable for the objectives of the Division of International Programs in linking US and foreign scientists with complementary talents and experiences. The US scientist has experience and research results in the area of GA that can benefit from the extension of the methodologies to practical settings in the field of structures. The Indian scientist at the IIT has experience in knowledge-based design of structures. This can benefit from applying the current GA theory and techniques. ***